Geospatial Line of Business (LoB) E-Government Intiative 2009-2010

The Geospatial Line of Business (LoB) is an Office of Management and Budget (OMB) E-Government initiative to identify ways in which services commonly found in numerous agencies can be provided in a more efficient manner. The establishment of the Geospatial LoB will result in a more coordinated approach to producing, maintaining, and using geospatial data, and will ensure sustainable participation from Federal partners to establish collaborative model for geospatial-related activities and investments. The contribution by the National Science Foundation will support full participation in the Geospatial LoB development activities designed to achieve the planned improvement to the baseline for each performance measurement indicator outlined in the FY 2009 Geospatial LoB.